Dissolution of Kinetics of NAPL Pools in Saturated Porous Media

This is an award to support research on the rate at which non-aqueous phase liquids that reach a groundwater aquifer undergo interactions with the groundwater and constituents of the aquifer itself. The project addresses the dissolution of liquids such as benzene, carbon tetrachloride and vinyl chloride when they form pools on the surface or below the surface of the groundwater. The investigator plans on using an aquifer simulation laboratory model to simulate an aquifer and data will be used to determine the mass transfer coefficients and to validate the mathematical model that incorporates longitudinal advection, longitudinal and vertical dispersion, and adsorption. The fluids being studied in this project are characteristic of groundwater contaminants that may be subject to removal by an extraction process. However, the extraction is influenced by the limited solubility of the target fluids in water. Results of this project may be applied to better engineering design of systems for removal of this class of contaminants from groundwater.